Neuroengineering Analysis and Design Tool for Complex Coolant Systems

Development of hypersonic aircraft requires a high degree of system integration. Design tools are needed that can provide rapid, accurate calculations of complex fluid flow patterns. Existing methods, while reasonably accurate, are much too efficient design. This project addresses that need. The application of neural networks will be used to model coolant flow patterns. First, the ability of neural networks to model coolant flow will be demonstrated at the component level. A single heat exchanger component will be modeled by a neural network and trained using data generated by the existing flow equations. Then multiple components in series within a flow leg will be modeled using a series of neural networks. Next these legs will be joined in parallel to form a heat exchanger panel. Finally, various combinations of panels in series and parallel will be molded using hierarchical neural networks. A combination of neural network software and computational hardware will be proposed for a potential Phase II effort in which this computational capability will be made user friendly and accessible to design engineers with minimal neural network background.